Universality in Chromatic Homotopy Theory

Spheres are among the simplest and most basic geometric objects, and yet they yield certain invariants that serve as universal building blocks in topology. This project addresses a fundamental problem in modern mathematics: calculating these invariants, called the stable homotopy groups of the spheres. These groups record subtle features of geometric spaces that cannot be detected by more elementary algebraic invariants, and their study has repeatedly led to the creation of powerful new mathematical theories. A key discovery is that these groups contain recurring periodic patterns. Understanding these patterns offers a way to organize otherwise extremely complicated information and to identify large-scale structures that appear throughout topology, higher algebra, algebraic geometry, and mathematical physics. The project also supports the national interest through scientific workforce development, education, and the broad dissemination of research. Methods studied in the project have applications to mathematical physics and the classification of quantum phases of matter, an area of the PI's expertise. The PI will organize a graduate summer school connecting homotopy theory, higher algebra, and mathematical physics to broaden access to these techniques. The summer school will introduce students to active research at the interface of mathematics and physics, showcase the work of early-career researchers, and produce freely available online educational resources. The project will further support the next generation of mathematicians through graduate mentorship and a summer research opportunity for undergraduate students. The PI will also disseminate the results of the project through research publications and conference lectures. The PI will continue to contribute to the national mathematical community through professional service.

The PI proposes to describe, compute, and understand periodic families in the stable homotopy groups of spheres by applying recent developments in Galois theory and ambidexterity in chromatic homotopy theory. Chromatic homotopy theory organizes periodic phenomena according to height and provides a hierarchy of approximations to the category of spectra. The project will study the relationship between the T(n)-local and K(n)-local categories. The T(n)-local category captures universal periodic phenomena, while the K(n)-local category is more accessible to computation through tools from algebra and arithmetic geometry. The overarching strategy has three stages. First, the project will construct universal descriptions of important data in the T(n)-local category, such as homotopy classes, cardinalities, units, and invertible objects. Second, it will apply the localization functor from the T(n)-local category to the K(n)-local category and use computational tools available in the K(n)-local setting to detect the nontriviality of these data. Third, it will use the universal nature of the original constructions to deduce the existence of new nontrivial periodic phenomena in stable homotopy theory. The project will focus especially on chromatic height 2, which lies at the frontier of current computational understanding. This work builds on major recent advances in the field, in both methods and applications. The PI will draw on these theoretical developments and the PI's expertise in K(n)-local computations to obtain new structural and computational results in chromatic homotopy theory.